CAMAC (Computer Automated Measurement and Control) Based Data Acquisition System for the Undergraduate Nuclear Physics Laboratory

The Physics Department will improve the undergraduate nuclear physics curriculum by giving students hands-on experience in the latest state- of-the-art technology in real-time data acquisition, monitoring and control that is used not only in the area of nuclear physics, but also in the chemical industry and in the medical field. The purchase of a CAMAC system will be the first step toward this goal. This system includes a CAMAC crate, a crate controller, three CAMAC modules (analog to digital converters) and an IBM PC/AT compatible PC with associated software for data acquisition. The CAMAC system will be used in the advanced undergraduate physics laboratory to acquire, monitor and control data in nuclear physics experiments. Since this system has found widespread use in industrial, research and medical applications, this equipment will better prepare undergraduate physics students for graduate school and industry.